An Instrument for Sequencing of Proteins from 2-D Gels by Capillary Electrophoresis/Mass Spectrometry

Abstract Lubman
An instrument will be developed for rapid detailed sequence
confirmation of protein spots from 2-D SDS PAGE gel electrophoresis. The
basis for this work is that an important goal in the field of proteomics
involves the ability to rapidly identify and analyze the protein content
of cells. Proteins perform many of the functions in cells and small
changes in their structure may result in large changes in processes in
cells. The general method for monitoring the protein content in cells is
2-D gel electrophoresis;however, the determination of the protein
structure requires other methodologies, such as mass spectrometry. The
instrument to be developed for such sequence analysis will involve using
high resolution capillary electrophoresis (CE) for separation of tryptic
digests of selected protein spots from 2-D gels with analysis of the
peptide map by time-of-flight (TOF) mass spectrometry. The method will be
unique in its capabilities in terms of providing information on the
changes in the detailed sequence of proteins at femtomole levels from 2-D
gels, including the presence of phosphorylations, glycosylations,
deamidations, etc. Further the method will be developed to provide rapid
analysis (5 min) for each protein spot and will be automated to perform
analysis for up to 100 selected spots from a gel.

The unique instrumentation to be developed involves capillary
electrophoresis/time-of-flight mass spectrometry (CE-TOFMS). The peptides
generated from enzymatic digestion of a protein will be separated using CE
to provide the resolution to resolve the large number of peaks that result
for proteins up to 100 kDa. The narrow bands (1-3 s) produced by these
separations, require the use of a nonscanning TOFMS to respond to the
speed of the method. The TOFMS provides analysis of the mass of the
eluting peptide peaks so that a detailed peptide map can be obtained. In
addition, an ion trap will be used as a prestorage device before the
TOFMS, so that ions can be stored and integrated before analysis. The ion
trap provides capabilities for selective isolation of ions and tandem mass
spectrometry (MS/MS) so that detailed structural analysis can be performed
on the peptides by collision induced dissociation (CID). This methodology
is being developed on-line for full structural analysis of tryptic
peptides for proteins up to 100 kDa. An initial identification of the
selected protein spots from a 2-D gel can be performed by MALDI-mass
spectrometry and database search. The peptide map obtained by the CE-TOFMS
can be automatically compared to the known sequence from the database and
peptides that do not match the expected sequence can be analyzed for
modifications by the MS/MS data. Using this method, up to 100 selected
spots from a 2-D gel can be analyzed to identify posttranslational
sequence modifications.

The problem to be studied by this method will involve monitoring
changes in protein expression in 2-D. The focus will be on various proteins
that have been over-
or underexpressed or where the presence of modifications has resulted in a
change of migration of the gel spot. The methodology being developed will
provide the ability to rapidly monitor detailed changes in protein
structure that are possibly related to various changes in the cell cycle.
The instrument to be developed will provide unique
capabilities for rapid detailed studies of these proteins for structural
changes and critical modifications.